ROW Planning Grant: The Influence of High School Type on the Achievements of Women in Mathematics and Science

This proposal, submitted through the ROW Planning Grant initiative, is designed to assist the PI in preparing a competitive research proposal for the National Science Foundation. The topical area of research is the persistence of gender differences in representation in mathematics, science, and technical fields despite women's progress in educational attainment. The PI will explore whether the positive effects on college attendance and completion of Catholic high school attendance by girls extend to positive effects on their study of science and mathematics. The data base to be used is High School and Beyond. The questions to be addressed are: (1) What gender differences exist in mathematical and scientific educational experiences, as well as in attitudes towards these fields, among seniors in 1982? (2) Do such gender differences vary by high school type (public or Catholic) when individual social background is controlled for? (3) What are the mechanisms through which Catholic high schools confer possible advantages or disadvantages to their students? (4) Do different types of Catholic high schools, such as single-sex or co-educational schools, have differental effects upon the achievements and enrollment patterns of women and men in mathematics and science? The PI will use the ROW planning grant to establish contact with senior advisors well-versed in this type of research so that she can improve her statistical and methodological skills, to complete a more thorough review of the literature, and to prepare her data for the study that she would then propose for NSF funding.